Problems in higher dimensional topology

One of the several subjects which this project will focus on is a
(possibly) new type of invariant for finite group actions on toplogical
spaces. Let G denote a finite p-group, for some prime integer p, and let
F denote a field of characteristic p. Any cellular group action
h:GxK ---> K by G on a finite CW complex K gives rise to a chain complex
C(*) over the group ring F(G). An "elemental chain subcomplex" of C(*)
is any chain subcomplex E(*) such that for some integer i the boundary
map E(i) ---> E(i-1) is an isomorphism between principle F(G)-modules,
and E(j)=0 if j is not equal to i,i-1. A chain subcomplex D(*) of
C(*) is called a "minimal core" for C(*) if C(*) is the direct sum
of D(*) and some elemental chain subcomplexes of C(*), and if D(*) does
not have any elemental chain complex direct summands. In recent work
Jones has shown that a minimal core always exists and that its
isomorphism type depends only on the equivariant homotopy type of the
group action h. In future work Jones plans to focus on the
classification (up to isomorhism) of all minimal cores over the group ring
F(G).

In toplogy (that field of mathematics to which this project is
most closely associated) one studies the structure of spaces in a very
loose manner. Examples of the spaces which topologists study occur
everywhere ---- from theortical physics to objects occuring in everyday
life such as a ball or donut. From the point of view of toplology
all balls are the same (they have the same shape when considered as
abstract toplological spaces); likewise any two donuts have the same
"shape"; however a ball has a different "shape" than a donut (since
a donut has a hole but no ball has a hole in it). The main object of
topology is the determination of when two differenet spaces have the
same "shape" (such spaces are said to be "topologically equivalent").
For well over one hundered years an important approach to this problem
has been to associate algebraic objects (such as numbers, groups, rings,
etc.) to each space in such a way that if two different spaces are
topologically equivalent then all their known associated algebraic objects
must be equal. This approach has been very successful because the associated
algebraic objects are generally much easier to understand then are the
spaces themselves. Jones has recently discovered what seems to be a new
type of algebraic object associated to spaces. Currently he is trying
calculate this new algebraic object and to understand how it is related
to the many older well known algebraic objects associated to spaces.